A Regional WWW-Based FT-NMR for Chemistry Curriculum Improvements

Regional undergraduate instruction is being improved through use of a Fourier transform nuclear magnetic resonance (FT-NMR) spectrometer. Students are provided with a single set of knowledge and skills through a set of core lecture and laboratory courses. Fundamental aspects of FT-NMR spectroscopy (the acquisition and interpretation of I H and 13 C NMR spectra plus the nature of the FT-NMR experiment) is taught in the earlier courses of the set, the year-long organic sequence and instrumental analysis. Advanced aspects of FT-NMR spectroscopy (heteronuclear coupling, the relationship between temperature and fluxioniality, and multidimensional NMR structural analysis) are taught in a later course, advanced inorganic chemistry lab. An open-ended research problem, calling on students to creatively integrate their knowledge of NMR spectroscopy, provides a capstone NMR experience, in a senior lab course in organic chemistry.

The tools used to implement the curricular developments are a FT-NMR spectrometer and the World Wide Web (WWW). The FT-NMR is located at Governors State University, and is connected to the University of St. Francis and to South Suburban College, and eventually to all members of the South Metropolitan Regional Higher Education Consortium (SMRHEC), via the WWW. Faculty development, to support FT-NMR users, includes: an initial meeting of SMRHEC faculty devoted to a demonstration of the instrument and its capabilities, the establishment of a regional FT-NMR users' group, and annual meetings of the users' group. The annual meetings provide a forum for curriculum development, facilitate the transfer of curricular materials between institutions, provide a forum for the presentation of student research, and allow for discussions with invited speakers who use advanced applications of FT-NMR.